Enhanced Applications of Fourier-Transform Infrared Spectroscopy in the Chemistry Curriculum

Fourier-Transform Infrared Spectroscopy is one of the most effective tools available in the modern chemistry laboratory for identifying chemical compounds. The objective of this project is the educate science (chemistry, biology, environmental science) majors, and selected non-science majors in the theory and use of this technique. The introduction of FT-IR instrumentation and theory into introductory and selected advanced courses is described. Introductory courses will stress functional group identification, while the more advanced courses will investigate spectroscopy theory, instrument optimization and quantitative analysis. The use of DRIFT (diffuse reflectance) spectroscopy and IR microscopy to examine real, interesting samples (e.g., shoe heels, golf ball covers, soda bottles) benefits students in a variety of courses in the targeted disciplines. In addition to the students at Randolph-Macon College, primary and secondary school students using resources of the local Mathematics and Science Center benefit from this equipment.